Comparison of Bacillus Sporulation Genes in two Species: ROWCareer Advancement Award

This ROW Career Advancement Award will examine the regulation of three interesting sporulation loci in Bacillus. These loci either produce or modify new factors that allow changes in RNA polymerase specificity and transcription of genes involved in the temporally and morphologically regulated sporulation process. The investigator will explore the structure and function of these genes by asking: 1) Are these pivotal genes found in two distantly-related spore-forming species? 2) If so, how homologous are they? 3) Are the genes also regulated similarly? 4) Do these genes direct transcription of similar genes? Priority will be given to the genes that prove to be the most interesting during the comparative studies. This research is important as sporulation in bacteria is the simplest cell differention process known and is being used as a model system to begin to understand the expression and regulation of genes involved in temporal and morphological cell changes.